The SCI-MA Connection (Mathematics/Science for Middle School Girls) -- EARLY ALERT

Bridgewater State College will initiate a six-week, residential, Early Alert Initiative Young Scholars project in Mathematics and Physics which will offer science enrichment activities for 40 female precollege students entering grade 7. This program will emphasize investigations and communications in mathematics and physics. In addition to the summer activities, participants will take part in an academic year component during which they will visit career sites and work with career mentors. They also will work in teams supervised by teacher mentors on a series of mathematics and physics projects related to topics such as fiber optics.